Research Experience for Undergraduates (REU) Site in Sociology

This award provides funds for a Research Experiences for Undergraduates Site in Sociology through SUNY, Stony Brook. The award provides the opportunity for ten undergraduate students to be immersed into an active research environment spanning the areas of social organizations across species, stratification, demography, gender studies, homelessness, the sociology of warfare, and intensive qualitative analysis. The students will work as apprentices under the close supervision of faculty mentors and experienced graduate students. The goal is to introduce students to research utilizing the most current theoretical models and the latest, state-of-the-art equipment and methodological techniques. In addition to the research experience, participants will receive academic counseling and have access to a variety of support services. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.